Novel Separation Processes using Solvents with a Critical Point of Miscibility

This proposal deals with a novel separation process recently developed that could add a valuable and powerful tool to the process designer. It is concerned with multistage countercurrent separation processes. The basic idea underlying the approach is based on using pairs of solvents that have a critical point of miscibility. By operating close to the critical point and changing the temperature of the system, one can alternatively create regions where the two solvents form homogeneous solution and others in which they separate into two distinct phases. Such solvents are already used in separations, but at present they are used far from the critical point of miscibility. By operating across the critical point in each section, the mass transfer in the mixing zone as well as the coalescence process is facilitated. This allows design with low intensity of mixing, and this will be useful for separations in which there is a tendency to emulsification or foaming due to impurities. It is also suitable for separation of high molecular weight compound which have low diffusivities and therefore high mass transfer resistance. This allows some novel design options and will allow separations which are at present not economically feasible with existing solvent separation methods. The basic concept has been demonstrated and a small column has been successfully operated. However, in order to apply these processes in an efficient way, a better understanding of the scientific principles involved is required. The goal of this proposal is to provide understanding, as well as to provide a better scientific base for future design.